A Compliance Study of Partial Melt ini the Crust Beneath the EPR and the Relationship of Melt to Tectonics and Construction of the Crust

Seafloor compliance will be measured at more than 50 sites on the axis and flanks of the East Pacific Rise between 9 20 north and 10 20 north. The melt distribution in the lower crust and uppermost mantle will be mapped. The primary scientific problems to be addressed include: How and why do morphological melt starved segments differ from robust segments ? Does melt pool at the crust-mantle boundary before percolating through the lower crust ? How does lower crustal melt decrease toward segment ends ?